Molecular Biology of the RuBPC/O from an Antarctic Cryptoendolithic Cyanobacterium

This Small Grant and Exploratory Research (SGER) proposal supports the research to assess the feasibility of isolating a specific enzyme, ribulose bisphosphate carboxylase and oxygenase complex, from primitive microorganisms, which live within sandstone in the Ross Desert region of Antarctica. These primitive microbes include primary producers (lichens, green algae and blue-green algae) and primary consumers (bacteria, yeasts, and fungi) and occasionally metabolize under extreme environmental conditions of temperatures, light, moisture and inorganic nutrients. The carboxylase-oxygenase system will be studied to determine whether it has unique sequences in its amino acids which may contribute to its ability to function under extreme environmental stress. If unique amino acid sequences are found, nucleotide sequences in the gene that codes for this enzyme complex will be examined. This information should provide some understanding as to the evolutionary relatedness of this enzyme compared to temperate species.